Motion Display in the Treadport Locomotion Interface

Abstract

IIS-9908675
Hollerbach, John
University of Utah
$75,000 - 12 mos.

Motion Display in the Treadport Locomotion Interface

Locomotion interfaces represent a new field, and at this early stage
there are many uncertainties about the best approaches. This exploratory
research is concerned with the mechanical display of slope,
inertia, and turning on a treadmill-based locomotion interface, the
Sarcos Treadport. The Sarcos Treadport comprises a linear tilting
treadmill, an active mechanical tether, and a CAVE-like visual display.
The active mechanical tether, which is the unique aspect of the Treadport,
measures user position and applies axial forces to the user.
Although the treadmill is a linear device, the research aims to show that the
tether coupled to the visual display provides a reasonable basis for
turning control. The force-producing capability of the active tether
offers the unique ability to simulate inertial forces during running,
which are otherwise absent because the user is stationary. Treadmill
tilt mechanisms are typically too slow to display rapid slope changes.
By pulling on the user to simulate uphill walking and pushing for
downhill walking, the active mechanical tether can simulate gravity.
The PIs propose to conduct a series of biomechanical, modeling, and
psychophysical studies to demonstrate the proposed motion displays for
turning, inertial force, and slope using an active mechanical tether.
The objective is to show that adding a mechanical tether to linear
treadmills is a useful and reasonable approach towards locomotion
interfaces, and that the proposed locomotion display approaches have
some scientific basis and are effective from a user standpoint.